Space Weather: A Compilation and Study of the Properties ofHe I 1083 nm Coronal Holes

The PI will reexamine the National Solar Observatory/Kitt Peak (NSF/KP) high-resolution daily and synoptic rotation helium 1083 nanometer spectroheliograms, and nearly simultaneous magnetograms, to produce a finalized set of coronal hole maps. In making these maps, she will measure several properties of each identified coronal hole, such as the magnetic flux, area, position, average helium equivalent width, and heliographic position of coronal hole boundaries. Resultant maps and information will be published through the NSO/KP anonymous archive and atlas. Moreover, she will use these data to investigate the variation of coronal holes' properties on time-scales of days to the solar cycle, coronal holes' relation to the emergence and evolution of active regions and the occurrence to coronal mass ejections. This research will provide important clues to understanding short- and long-term evolution of the solar magnetic fields, their extension into interplanetary space, and eventual effects on Earth.